Aspects of Bakry-Emery Ricci Curvature

Abstract

Award: DMS-1105536
Principal Investigator: Guofang Wei

This proposal studies the geometry and topology of smooth metric
measure spaces with Bakry-Emery Ricci curvature bounded from
below and quasi-Einstein metrics. The Bakry-Emery Ricci
curvature is an important generalization of Ricci curvature for
smooth metric measure space, which occurs naturally as the
collapsed measured Gromov-Haudorff limit. Furthermore, the
Bakry-Emery Ricci curvature plays important roles in a variety of
topics such as the study of Ricci soliton, warped Einstein
metric, diffusion process, logrithmic Sobolev inequality, as well
as in the extension of Ricci curvature lower bound for metric
measure space. The principal investigator will study the geometry
of Ricci solitons; relation between comparison geometry and Ricci
flow and obtaining a combined estimate for the first eigenvalue
for Ricci positive and nonnegative lower bound. The PI will also
study the structures of the fundamental groups for manifolds with
lower integral Ricci curvature bound as well as minimal volume of
hyperbolic orbifolds.

Bakry-Emery Ricci curvature and Ricci soliton play a very
important role in Ricci flow, which led to the solution of
Poincare conjecture. Quasi-Einstein metrics is are important
both in mathematics and physics. Smooth metric measure space is
also related to optimal transport, information geometry, discrete
geometry. The proposed activities would have impact on all these
directions. The fundamental group is the most fundamental (as
the name implies) topological information. Its understanding will
greatly advance the study of the effect of curvature bounds on
the global topology of Riemannian manifolds, therefore will be
helpful in answering questions about the shape of the universe.